RASSCALS: Robotic AO Survey of Sco-Cen for Companions at Large Separations

For the past 20 years, adaptive optics (AO) on large ground-based telescopes has enabled direct imaging and spectroscopy of gas-giant exoplanets. However, observational progress in direct imaging studies has been hampered by the infrequent pace of discoveries and overall small sample size. Researchers at the University of Hawaii (UH) will carry out RASSCALS (Robotic AO Survey of Sco-Cen for Companions at Large Separations), a project to conduct the largest adaptive optics (AO) survey to date for wide-separation (100-1000 AU), substellar companions (exoplanets and brown dwarfs) in the nearby Scorpius-Centaurus stellar association. This survey will leverage the new robotic AO system on the UH 88-inch telescope to image an unprecedentedly large sample of young stars, significantly expanding the current census of wide separation companions around both single and multiple stars. The researchers will characterize these discoveries through photometric and spectroscopic follow-up on Mauna Kea 8-10 meter telescopes, in order to infer their physical properties and examine population-level trends as a window into their formation. The team will contribute to STEM education in the state of Hawaii by engaging both teachers and students at the high-school level with astronomical research and education through UH’s TeachAstro summer program.

RASSCALS will directly address the key bottleneck of the infrequent pace of discoveries and small sample size by targeting the creation of a 5–20 times larger sample than any previous AO survey, thereby greatly boosting the number of imaged exoplanet and brown dwarf companions. Follow-up observations will produce a large library of high-quality spectral energy distributions and IR spectra to infer the companions’ atmospheric properties, and statistical analysis of the companion detections and non-detections for all targets will infer the occurrence rate, mass distribution, separation distribution, and dependence on host star mass and multiplicity. Altogether, RASSCALS’ resulting census will provide an empirical benchmark for understanding how wide-separation companions form and evolve within the same well-characterized birth region, establishing Sco-Cen as an observational cornerstone for substellar companion formation.